Molecular Organization and Transport in Synthetic and Biological Nanopores

PROPOSAL NO.: 1403058
PRINCIPAL INVESTIGATOR: Szleifer, Igal
INSTITUTION NAME: Northwestern University
TITLE: Molecular Organization and Transport in Synthetic and Biological Nanopores
NSF RECEIVE DATE: 10/29/2013

Biological and synthetic pores and channels of nanoscale dimensions display unique ionic and protein transport behavior. Nanopores
modified with supramolecular chemical species (such as polyelectrolyte brushes) have dimensions that are similar to the range of the
electrostatic interactions, and also to the molecular size of the tethered macromolecules. In cells, Nuclear Pore Complexes (NPC)
control the transport of species between the cytoplasm and the nucleus using disordered proteins as gate keepers. The competition
between molecular and interaction length scales, as well as the geometry of the surfaces, creates interesting possibilities for the
creation of stimuli responsive gates and ion channels and for the fundamental understanding of the interplay between molecular
organization, charge, proteins and nanoparticle transport in nanoconfined environments. The proposed work involves the development
and application of theoretical approaches that capture the coupling between molecular organization, physical interactions and chemical
equilibrium in order to describe the behavior of the nanopores. Most of the theoretical work will be based on an equilibrium and
kinetic molecular theory that has been developed in the group of the PI. Furthermore, comparing the predictions of the molecular
theory with detailed molecular dynamics simulations (when possible) will check the range of applicability of the theory. The proposed
work is separated into two main thrusts: 1) Synthetic nanopores. Understanding how responsive polymers, bulk solution conditions
and the geometry of the nanopore affect the structure and transport of nanoparticles, proteins and small ions through the nanopores.
The types of responsive polymers include: weak polyelectrolytes, hydrophobic polymers and pH sensitive zwitterionic polymers. 2)
Nuclear Pore Complex. Systematic studies of the role that intrinsic proteins forming the NPC as well as adsorbed proteins have on the
ability of the pores to gate transport of proteins across the pore. The proposed work is of fundamental importance in the understanding
of interfacial properties of responsible materials as well as transport. Moreover, the proposed work will provide guidelines for the
design of nanoconfined soft materials with a wide range of applications in biosensing, charge or proteins separations, chromatography,
drug delivery and microfluidics among others.
The understanding of responsive soft materials in confined environments requires multidisciplinary expertise at the interface between
materials science, engineering, physics, chemistry and biology. The proposed work has the dual purpose of: i) fundamental
understanding of the coupling between molecular organization, physical interactions and chemical state in confined soft matter and ii)
the outcomes of these studies will be used for the molecular design of responsive coatings that lead to desired transport behavior. The
study of these complex systems requires the understanding of equilibrium and time dependent properties. The time dependent behavior
spans over many orders of magnitude in time. The proposed work, thus, combines molecular dynamics simulations that are excellent
for short time scales with time dependent molecular theory that enables the study of very long times maintaining a molecular level
description of the mixtures. The continued collaboration with the experimental group of Prof. Omar Azzaroni (UNLP, Argentina) and
the theoretical group of Prof. Yitzhak Rabin (Bar-Ilan, Israel) will provide the theoretical work with realistic checks at all stages of the
work.
The work proposed here will include educational research experiences for graduate and undergraduate students. The PI plans to attract
women and underrepresented minorities for this project, as he has been successful to do it in the past. The PI will use the resources
from the REU programs administered by Northwestern MRSEC and by the Chemistry of Life Processes Institute. The main finding
from this research will be included in the undergraduate and graduate courses taught by the PI. The findings from the research will be
published in peer-reviewed journals and will be posted on the PI's web site. The software developed from this project to apply the
molecular theory to complex soft materials will be available for download from the PI's web site and will be aimed for the use by
non-expert due to the multidisciplinary nature of the potential applications of the proposed work